Numerical Modeling of Magnetospheric Dynamics

Numerical modeling of physical processes related the aurora and substorm dynamics in the earth's magnetosphere will be studied. A numerical model will address the question of acceleration of auroral electrons. Appropriate boundary conditions and the role of collisions will be included in the calculations. The study of the transport of plasma (especially heavy ions) from the ionosphere to the plasma sheet will be conducted. The model should be able to explain the presence of O+ ions in the plasma sheet. The convection electric field can accelerate the ions over the polar cap. The role of ions in the substorm dynamics will be established by the numerical model. A magneto-inductive particle code will be used to model field- aligned currents. The model includes the effects of non- adiabatic particle motion in the self-consistent magnetic field. This model should be able to provide information on the storm- time interaction between auroral electrojet and the near-earth plasma sheet. The results from this model calculations will be useful in understanding current-driven ion cyclotron heating in a converging magnetic field. Information on the ion conics and micro-double layers also will available from this model.